Ship Construction or Conversion

This proposal requests support for improvements to the research vessel R/V RIDGELY WARFIELD, an NSF-built research vessel, operated by the Johns Hopkins University, Chesapeake Bay Institute (CBI) and dedicated to use in support of ocean science research. The construction or conversion activity of the Oceanographic Centers and Facilities Section provides funds for upgrading the capabilities of ocean science research vessels through support of ship construction or conversion. Support is provided for such things as new deckhouses, improved laboratory spaces, improved power systems, sophisticated submersible handling equipment, and the lengthening of ships and even new ship construction. The Project Directors, Dr. James D. Ebert, Director CBI, and Bruce K. Cornwall, Marine Superintendent, are fully qualified to direct this project having had considerable experience in overseeing similar activities. This project will provide funds for a detailed design for the replacement of the WARFIELD's engines and generators in order to extend the useful life of the ship as a coastal zone research vessel.